III: Small: EntityEngine: A Query Engine for Entity-Relationship Queries Over Web Text

The continuous evolution of the Web has made itself the primary
knowledge source for many people. It has become an information
repository full of entities (material or virtual) and descriptions
of their properties and relationships. In discovering and exploring
the entities that fascinate them, the users are in need of
structured querying facilities, coupled with text retrieval
capabilities, that explicitly deal with the entities, their
properties, and relationships.

In this project, the PIs investigate a novel declarative query
mechanism, entity-relationship queries (ERQ), for users to discover
and explore the rich structured and entity-centric information on
the Web. The research objective is to produce general methods for
efficient processing and optimization of entity-relationship
queries and automatic ranking of query results, and to
systematically develop a query engine for such queries. The
methodology is to exploit the evidence of the co-occurrence of
entities and keyword constraints, through the integration of DB and
IR methods. A systematic approach will be taken to produce automatic
ranking function formulation method, efficient entity-centric index
and index selection methods, and top-k query processing algorithms.

The research results will have broader impacts on the higher
education system, high-tech industries, the scientific community,
and the general public. The educational goal of the project is to
be achieved by integrating research and educational efforts through
these activities: broadening database curriculum; involving
under-represented students and undergraduates in research;
outreach; and publicly releasing the online demo, software,
datasets, publications, and course materials.

For further information see the project web page:
URL: http://idir.uta.edu/erq